Algebraic, Geometric, and Asymptotic Properties of Branch Groups

DMS-0308985
Grigorchuk, Rostislav

Abstract

Title: Algebraic, Geometric, and Asymptotic Properties of Branch Groups

This project will focus on properties of branch groups.
Branch groups are abstract mathematical objects that play an important
role in solving major problems on the intersection of different parts of
mathematics, such as Algebra, Number Theory, Analysis, Geometry and
Probability Theory. The proposer will study these groups and their relation
to a number of important and long-standing problems in modern mathematics,
such as the Burnside and Milnor Problems in Group Theory, Atiyah
Conjecture in Topology, Kadison-Kaplansky Conjecture in Functional Analysis.
The results obtained in this project have useful applications in Cybernetics
and Computer Science, as well as Cryptography and Theory of Algorithms.

Combinatorial Group Theory is one of the most rapidly developing parts
of modern mathematics. Starting with works by Poincare and Klein this
area received contribution from some of the most prominent
mathematicians of the twentieth century, such as von Neumann, Milnor and
others. In recent decades Combinatorial Group Theory became an object of
especially intensive research due to newly found connections with
Statistical Physics, Quantum Chaos Theory and Computer Science. New
promising directions of mathematical research have been developped, one
of them being the theory of branch groups. This theory has strong
connections to several mainstream open problems in modern mathematics.
Tremendous progress acheived in recent years indicates that the
exploration of these connections leads to most fruitful ideas and results.